Mathematical Sciences: Research In Mathematical Statistics and Probability

This award provides computational equipment for the study of stochastic approximations in statistics. The three areas of emphasis include the study of modifications of stochastic approximation methods to insure that a point of global rather than local minimum is approached, the study of stochastic approximations in the case of dependent errors (that is, errors that do not form something close to a martingale), and the study of finite sample behavior of stochastic approximation methods.